Representation of Affine and quantum Affine Algebras and their Applications

9802449 Misra This award supports a conference on "Representations of Affine and Quantum Affine Algebras and Their Applications" at North Carolina State University. This conference aims to bring together experts working in different aspects of affine Lie algebras and quantum affine algebras as well as their applications. The participants will involve senior, mid-level and junior researchers working in this area. Special efforts will be made to assure that the list of participants is diverse. This conference is concerned with a mathematical object called a Lie algebra. Lie algebras arise from another object called a Lie group. An example of a Lie group is the rotations of a sphere where one rotation is followed by another. Lie groups and Lie algebras are important in areas involving analysis of sperical motion.